POWRE: Effects of Cytokines on Neuroendocrine Physiology

It has long been suggested that stress, especially chronic stress, can alter the way in which our bodies normally function. Stress (both physiological and psychological) alters various immune functions, which could potentially be an important factor in linking chronic stress to a variety of physiological abnormalities. More recently, scientists have become interested in the interactions between stress, the immune system, and the brain. There is a growing body of evidence that stress can stimulate chemical secretions from immune cells (these chemicals are called cytokines), and that these cytokines can in turn alter specific brain functions. This POWRE award will investigate the relationship among immune, neuroendocrine and brain function. This project is particularly suited for a POWRE award because it will allow exploratory work to determine the feasibility of a new line of inquiry for Dr. Wayne. The purpose of the proposed work is to investigate the effects of cytokines on the function of a subset of cells from the brain - neuroendocrine cells that are responsible for secreting a hormone that controls reproductive behavior. An animal model with a simple nervous system, the marine mollusk Aplysia, will be used. The rationale for using Aplysia in the proposed studies is that, unlike with most higher organisms, their neuroendocrine cells can be easily identified in living tissue. That means that we are able to monitor the physiological response of these brain cells to cytokines; we can measure changes in both their electrical and secretory activities in response to chemicals that are secreted by stress-activated immune cells. Furthermore, marine invertebrates have a primitive immune system that is functionally analogous to that of mammals, including cytokines and stress-related hormones that appear to be structurally similar to their mammalian counterparts. The objective of this proposal is to develop the reproductive neuroendocrine cells of Aplysia as a model system to understand the effects of cytokines, and in particular interleukins and neurotrophins, on membrane excitability and downstream neuroendocrine cell functions by addressing the following specific aims: 1) determine the effects of interleukins and neurotrophins on neuroendocrine-membrane excitability and hormone secretion, and 2) determine the effects of interleukins and neurotrophins on hormone mRNA levels and hormone biosynthesis in Aplysia neuroendocrine cells.